The Dynamical Aspects of the Interaction of Hydrogen with Simple Metal Surfaces

The phenomena embodied in the interaction of hydrogen with the surface of a simple metal encompasses most of the basic concepts in surface science, and these systems are tractable theoretically. A plethora of theoretical predictions based on a wide range of calculational procedures have gone unchallenged or unsubstantiated due to the almost complete absence of experimental data. Experimental techniques have now advanced to the stage where it is possible to probe both the dynamics and the statics of the interaction of hydrogen with simple metal surfaces. Activated adsorption and State Selective Detection of H2 will be used to measure the shape of the potential energy surface which makes the dissociation of H2 an activated process. Angle Resolved Inelastic Electron Scattering will be utilized to measure the modification of the surface phonon spectra and the surface plasmon dispersion which is induced by various phases of adsorbed H. Changes (induced by H) in the surface electronic distribution will be probed by Angle Resolved Photoemission and Second Harmonic Generation. The surface geometrical structure will be determined using Low Energy Electron Diffraction. Finally, the effect of metallic particle size will be studied using clusters formed in a beam apparatus.